Mathematical Sciences: Structure of the Ideal Class Group

This research planning grant will enable the researcher to continue her investigation into the structure of the ideal class group of algebraic number fields. In particular, she will study how the class group of a compositum relates to those of the subfields. This is research in the field of number theory. Number theory starts with the whole numbers and questions such as the divisibility of one whole number by another. It is among the oldest fields of mathematics and it was originally pursued for purely aesthetic reasons. However, within the last half century, it has become an essential tool in developing new algorithms for computer science and new error correcting codes for electronics.